Workshop on the Auroral Substorm and its Importance on the Development of Solar-Terrestrial Research; Jhongli, Taiwan (R.O.C.); April 8-10, 2010

This project will provide travel support for students to attend the Workshop of the Auroral Substorm and its Importance on the Development of Solar-Terrestrial Research. The workshop is being held at the National Central University of Taiwan.